Engineering Research Equipment: Layered Manufacturing in Project MAXWELL

9411715 Dutta This award will purchase a layered manufacturing machine which will be dedicated to support research in engineering. The equipment will be used for Project MAXWELL, a research project in the area of discrete part design and manufacturing. It aims at bringing together two of the latest developments, one in design and the other in manufacturing, for the realization of efficient structural and mechanical components. The practical goal of the project is the verification of a methodology for the design and fabrication of parts that are highly efficient in terms of reduced weight and increased structural performance. The project is based on the homogenization design technique for designing the shape and material composition of structures and structural components based only on a description of loading conditions and packaging requirements. Such designs often possess complex geometries and microstructures. A layered manufacturing machine for the fabrication of such parts will be acquired. Under project MAXWELL, structural parts will be designed (both for form and materials composition), fabricated, and tested in an integrated manner.